The Record of Cosmogenic In-situ and Atmospheric 14C in GISP2 Ice Core

The PI proposes to study the record of the cosmogenic and atmospheric 14C in air samples that have been trapped in the ice core recovered from the summit of the Greenland ice sheet by the Greenland Ice Sheet Project 2 (GISP2). The abundance of 14C in the GISP2 ice core will be used to determine the atmospheric chemistry at the site for the past 30,000 years and to determine the chronology of climatic changes. Changes in the 14C tracer are an important piece of the evidence of a changing atmosphere during the transition from full glacial conditions to the present interglacial period.